REU at Lafayette College

Lafayette College's Undergraduate Research Project is an 8-week summer program in which undergraduates investigate open research problems in Mathematics. Over the past 10 years, more than 75 students have
participated in the program, working in small groups directed by individual faculty members. Many participants have published papers and presented talks at research conferences based on their work at Lafayette. The three topics of focus during the Summer of 2000 are Combinatorics (polynomials and graphs), Geometry (groups and symmetries) and Applied Mathematics (modeling swimming in fish).